Favored Regions of Convective Initiation

This research is focused on investigating the physical mechanisms which control the generation of thunderstorms in preferred regions of the Rocky Mountains. Specifically, the Principal Investigators will seek to determine the relative role of the dynamic and thermal effects of the mountains and the larger scale synoptic forcing in controlling the locations where thunderstorms form. The Principal Investigators will use a combination of numerical model simulations, actual data and statistical analyses to accomplish the research objectives.

The results of this project are expected to aid in the forecasting of precipitation and severe weather. Systems of thunderstorms known as mesoscale convective systems (MCS) are responsible for much of the Spring/Summer rainfall and severe weather in the U.S. These MCSs often begin as smaller convective systems in and near the Rocky Mountains. Better understanding of the initiation of the Rocky Mountain systems should contribute to better forecasts of MCSs.